Lattice Points, the Gauss Circle Problem, the Riemann Zeta-Function

DMS-0303132
Trifonov, Ognian T.

Abstract

Title: Lattice Points, the Gauss Circle Problem, and
the Riemann Zeta-Function

The investigator studies the properties of lattice points close to smooth
curves and surfaces and applications of these properties to classical
number theory problems. One objective is to improve on the Iwaniec-Bombieri
method and to obtain new results in the Gauss circle problem and on the
order of the Riemann zeta-function on the critical line. Another aim is to
improve on the Fouvry-Iwaniec method for estimating exponential sums with
monomials and to obtain new applications on the distribution of almost-prime
numbers in short intervals and B-free numbers in short intervals.
The investigator and his colleagues are also using Pade approximation
polynomials to obtain new bounds on the fractional parts of rational numbers
and applications to diophantine equations and on the irreducibility of
polynomials. Another line of research is on the convergence of Minmod-type
numerical methods for hyperbolic differential equations.

The Gauss circle problem and the problem of the order of the Riemann
zeta-function on the critical line are two of the most famed problems
in number theory. The Riemann zeta-function is closely related to the
distribution of prime numbers. Knowledge about prime numbers plays a
crucial role in the areas of cryptography and data encryption which are
important both for national security and e-commerce. Hyperbolic differential
equations find applications in problems involving flow (some examples are
gases around aircraft, wake of aircraft, underground contamination,
weather patterns). In most cases it is impossible to solve
exactly the relevant differential equation, so numerical schemes for an
approximate solution are applied. The investigator and his colleagues
have achieved progress and are working toward completely solving an
important open problem in the mathematical theory of numerical methods for
hyperbolic differential equations.